Center for Advanced Vehicle Electronics - Five Year Renewal

This award provides continued support for the Industry/University Cooperative Research Center for Advanced Vehicle Electronics (CAVE) at Auburn University. The objective of the center is to perform research on new technologies for the packaging and manufacturing of harsh environment electronics, with special emphasis on the reliability and cost requirements of the vehicle industry. The research thrusts of the Center in the harsh environments area include robust packaging and interconnection technologies, modeling methodologies, damage mechanics, material behavior and failure mechanisms, design procedures, accelerated testing methodologies, field-life correlations, and manufacturing processes. The Center puts its research in the hands of practitioners through technology transfer mechanisms including software tools, and design guidelines.